Upgrading Equipment and Instrumentation for Nuclear Structure Research

This grant will provide funds for capital equipment to allow the Notre Dame Nuclear Structure Laboratory to pursue new initiatives in Radioactive Ion Beams, Nuclear Astrophysics, and Superdeformation and other High-spin phenomena. The new equipment is divided into four categories: new style accelerating tubes for the Tandem accelerator and associated vacuum equipment upgrading, electronics equipment for the detection systems, a data acquistion and handling system, and Compton-suppressed germanium detectors for the gamma-ray studies. These are all areas considered to be of prime current interest in the field of nuclear physics. The Laboratory is used exclusively for academic research and for the training of Graduate and Undergraduate students. The University will demonstrate its support by cost sharing on this grant.